Algorithms for Large Scale Stochastic Optimization

This project continues previous work on nonlinear and stochastic networks. The basic research involves the design of efficient algorithms for large-scale network optimization problems. Attention will be paid to the inclusion of uncertainty within the model - stochastic networks - and to nonlinearities in the objective function. Many problems in engineering and management can be represented as a network in which some (or all) of the parameters are stochastic. Examples include: air-traffic control, hydroelectric power scheduling, financial investment strategies, transportation planning, productions/distribution, and personnel planning systems. Adding uncertainty to an optimization model greatly complicates the search for efficient algorithms. This research will focus on a new decomposition method, called diagonal quadratic approximation (DQA), that combines a penalty and an interior-point barrier approach. Initial results indicate that the DQA method is competitive with the leading stochastic programming algorithm - progressive hedging. Both methods are amenable to parallel implementation. The DQA method can be designed for a massively parallel computer. Thus, DQA applies to the multi-stage stochastic program, whereby large numbers of scenarios are required. The research will consider alternative versions of DQA and will study the theoretical aspects of convergence. Extensive computational tests will be made on a variety of serial and parallel computers, including a massively parallel SIMD machine. The research promises to make substantial progress in the handling of stochastic programming problems with a very large number of scenarios. The significance of the project is indicated by the wide range of applications that can be solved as network optimization problems under uncertainty.